Louis Stokes Alliances for Minority Participation (LSAMP): Mississippi Louis Stokes Alliances for Minority Participation Program (MLSAMP)

After nine years of this alliance, we have learned what the needs of our students are, and acted to produced desired results. We will continue many of the strategies put in place over the past nine years, since they are producing excellent results!
GOALS: The aims of the Mississippi Alliance in Phase III will be to:
1. Increase the number of SMET graduates from an estimated 661 to 825 by 2007;
2. Increase the number and percentage of minority students enrolled in SMET;
3. Increase retention rates of minority students in SMET;
4. Increase the annual graduation rate of enrolled seniors;
5. Track progression of baccalaureates into graduate and professional programs and careers;
6. Double the number of baccalaureates enrolling into graduate programs in SMET by 2007;
7. Double the number of minority students who earn Ph.D. degrees in SMET by 2007;
8. Develop institutional cultures that value diversity;
9. Forge partnerships with business and government across the state and region;
10. Leverage the federal dollars into institutionalized programs;
We will continue to emphasize undergraduate education but will develop productive bridges to graduated education.